Penn Summer Science Academy

9552919 Reibstein The University of Pennsylvania will initiate a 4-week, summer residential and commuter, Young Scholars project in molecular biology, environmental science, and mathematics for 100 rising 10, 11, and 12 grade students. Molecular biology students carry out laboratory projects, guided by faculty, and attend lectures on enzymes, molecular genetics, and developmental biology. Students in environmental science collect data and do environmental analysis of various types of ecosystems in the Delaware Valley area. Mathematics students explore areas of research including number theory, geometric optimization, chaos, and statistics. All students have a computer lab and will engage in follow-up activities during the academic year.